Computational Modelling of Multi-Level/Multi-Unit Organizations

Computational Modelling of Multi-Unit/Multi-Level Organizations

One of the most important organizational forms in modern economies is the multi-unit
organization. In manufacturing, the typical plant is part of a multi-plant manufacturer. In
services, the typical store is part of a retail chain. A defining problem of a multi-unit
organization is how to balance giving units the freedom to handle the idiosyncratic
features of their environments while, at the same time, coordinating the units to take
advantage of the commonality among them. How do multi-unit organizations solve this problem
and what is the most effective means of doing so? What is the relevant set of instruments
and what are the relevant features of the environment determining the best organization and
strategy? This project explores these questions and more broadly advances our understanding
of multi-unit organizations.

Our focus is on retail chains. The central idea underlying our approach is that much of the
behavior and performance of a retail chain can be explained by understanding how chains
generate, communicate, and use information. How new ideas arise and how they are evaluated
and adopted. How the authority to use information is distributed within the chain and how
incentives are structured to influence the creation and effective dissemination of
information. And how competition and technology interact with these information processes.

Implementation of this approach involves the development of a computational model of a
retail chain in which corporate headquarters (HQ) and stores are adapting to their
environments. HQ and store managers develop new ideas, evaluate their ideas and the ideas
of others, and then decide whether to adopt and communicate them to other members of the
organization. Competing chains are simultaneously engaging in an analogous exercise while
consumers experience and experiment among stores to find the one that best suits their
needs. Our analysis explores how various factors influence the rate of improvement of store
practices and chain efficiency. These factors include organizational structure (in
particular, the authority of store managers to change practices), store manager incentives
(as influenced by how they are compensated), the degree of competition within and across
geographic markets (and, relatedly, the effect of mergers), the amount of consumer search,
the rate of change in consumers' preferences, the degree of informational spillovers across
chains, and advances in information technology.